Alternative Routes to Quantitative Literacy for the Life Sciences

The objective of this proposal is to start the process of enhancing the quantitative components of many undergraduate life science courses by focusing on the general biology sequence taken by science students. The proposed efforts will illustrate to students the importance of a diversity of quantitative tools to analyze life science problems, emphasize the utility of quantitative methods across the spectrum of life sciences, serve to reduce the perception by students that math is only needed for math courses, and enhance students appreciation for the importance of theory in the scientific process. The objectives will be met through development of appropriate quantitative examples, based upon data and illustrating key biological concepts, for entry-level biology courses. Dissemination of results will proceed through publication of a Primer of Quantitative Biology and a variety of web-based products. The project will also develop assessment tools to aid faculty in determining the level of quantitative competency of life science students, particularly in topic areas critical to the life sciences.